Proposal Processing Support to Social and Political Science Cluster

9721256 Binaut This contract to Friday Systems Services provides administrative and logistic support to the Social and Political Sciences Cluster for performance of proposal processing, data entry and panel support and post panel support for approximately 250 proposals in three competitions (Political Science, Law and Social Science, Sociology). ***